Research in Geometry and Topology

The goal of this project is to understand structure of 3-dimensional
Poincare duality groups, Kleinian groups, flat conformal structures,
polygons in symmetric spaces and apply the latter to the representation
theory.

This project focuses in part on the structure of symmetries of objects
naturally arising in geometry, algebra and physics. Such symmetries
include both discrete symmetries (like the ones of wallpaper patterns and
regular solids) as well as continuous symmetries (like translations
and rotations of the space). Presence of ``negative curvature'' (which
implies for instance that sum of angles in a triangle can be less than 180
degrees) makes study of such symmetries more interesting and challenging.

Polygons provide a link between geometry and Lie theory, which is a
field of mathematics which involves both continuous and discrete
symmetries. Polygons, which are familiar objects from the
high-school geometry, become much more complex when considered in
negatively curved spaces. The ``side-lengths'' of polygons in
such spaces become vectors rather than numbers.
Such polygons provide a poverful tool in the Lie theory.